Partial Core Support of the Board on Physics and Astronomy

This award supports meetings and other activities of the National Academy of Science's Board on Physics and Astronomy (BPA). The Board on Physics and Astronomy (BPA) serves as the focal point in the National Research Council (NRC) for activities related to physics and astronomy and their interactions with engineering, medicine, chemistry, biology, and other sciences. The BPA's principal objectives are to maintain an awareness of the status of research in physics and astronomy, to identify emerging needs, and to initiate studies that address these problems and that foster continued progress. The BPA fulfills these objectives by working closely with the physics and astronomy communities in academia, federal agencies and their advisory committees, government laboratories, industry, relevant scientific and technical societies, and other boards and committees of the NRC.